Cornell's Low Cost Desktop Conferencing CU-SeeMe and Reflector Software

9318377 Cogger This award provides for further development of the CU-SeeMe and reflector software. CU-SeeMe software provides multiparty desktop videoconferencing using Apple Macintosh computers connected to the Internet. The system uses other computers running reflector software to knit together multiparty conferences. Improvements to be added include porting to PC platforms, adding color capability, integrating audio, improving ease of use, and upgrading several performance parameters. The award provides partial funding for 36 months. ***